Complex Analysis and Geometry

Abstract

Award: DMS-1105586
Principal Investigator: Daniel M. Burns

Some of the themes emphasized in these research projects are
modern aspects of the Bohr-Sommerfeld theory from the early days
of quantum mechanics in the 1920s, value distribution theory and
Ahlfors currents, and Grauert tubes. In physics the
Bohr-Sommerfeld theory was created as a method for quantizing an
integrable classical mechanical system. The principal
investigator interprets the Bohr-Sommerfeld conditions for
quantization as a geometric property, name a triviality condition
on the holonomy of a certain flat bundle. Ongoing work seeks to
understand the connections between singularities of Hamiltonians
and singularities of underlying complex spaces, and the geometry
of the Bohr-Sommerfeld construction seems to be a central focus
of the story.

Value distribution theory is a framework for attempting to count
solutions to an equation in complex variables. The Fundamental
Theorem of Algebra tells us that a polynomial equation of degree
n in one variable has exactly n solutions over the complex
numbers, if you count repeated roots with care. More complicated
equations in a single complex variable can have infinitely many
solutions, but these are spread around the complex plane and the
number of solutions contained in a ball of radius R about the
origin can only grow at a limited rate as R becomes large -- a
situation greatly clarified by ideas introduced by the Finnish
mathematician Rolf Nevanlinna in the 1920s, at about the same
time that the Bohr-Sommerfeld theory was developed in physics.
One of the projects supported by this award is a project that
applies modern geometric tools to study the distribution of
solutions to equations in several variables.